Generation and Reactivity of Reactive Sulfur Species

In this project, Professor John P. Toscano of the Department of Chemistry at Johns Hopkins University is developing new precursors to biologically relevant reactive sulfur species, including hydropersulfides (RSSH) and sulfilimine (HNS). Because these species are unstable, they are inherently difficult to study in aqueous solution. New methods for their efficient and controlled production will be developed that will allow their study and exploration of potential biological applications. The proposed research will afford broad, comprehensive training for graduate students and undergraduates, serving them well for future opportunities in both industry and academia. An integrated, afterschool science outreach experience for high school students, focusing on the use of zebrafish, diseases, and drug development will also be developed.

Hydrogen sulfide (H2S) is an endogenously generated small molecule signaling agent whose diverse physiological effects have been well documented. The chemical mechanisms responsible for these effects, however, remain inadequately defined. Recent reports indicate that much of H2S biological activity may be attributed to RSSH species, which are highly prevalent in mammalian tissues and fluids. Indeed, RSSH are proposed to be a ubiquitous endogenous antioxidant system that defends against ferroptosis, an iron-dependent regulated cell death pathway characterized by oxidative stress-induced peroxidation of polyunsaturated membrane phospholipids. The development of novel approaches to the generation of RSSH and precursors that target RSSH specifically to membranes to quench lipid peroxidation more effectively will be a focus of the proposed research. Despite its similarity to its isovalent cousin nitroxyl (HNO), which has recently received significant attention, HNS is a surprisingly unknown molecule. The lack of previous experimental study of HNS is likely due to its high reactivity and instability. Thus, development of new HNS precursors for its generation and determination of its subsequent reactivity will be an additional focus of the proposed research.